Improved Superconducting Properties in Bismuth Strotium Calcium Copper Oxide Multifilament Conductors Processed by Hot Rolling and Hot Drawing

Although high temperature Bi-2212 superconductors have been fabricated in round multifilamentary practical conductor form and have demonstrated excellent potential (Jc 165,000 A/cm2 at 4.2K) for commercialization, the need still exists to use scalable techniques to achieve high uniformity, good densification and high critical current densities (Jc) in long lengths of wire. The work proposed here will use hot rolling and hot drawing as a means to demonstrate the feasibility of this approach to obtain improved texture, density and uniformity in HTS Bi-2212 composite conductors. During Phase I of this program, efforts will concentrate on optimizing process parameters associated with hot processing. Success in Phase I will lead to scale up of the hot processing of longer lengths and/or billets in Phase II, to reproducibly and consistently achieve good superconducting properties resulting in significant cost savings.